Acquisition of a High-Field NMR Spectrometer

This project has enabled the institution to acquire a General Electric OMEGA 300NB MNR instrument with various accessories. The acquisition was seen as necessary for proper introduction of the underclass students to FT-NMR techniques, and to allow upperclass students to perform various advanced experiments. Most importantly, it was a necessary addition to the department's arsenal of equipment to permit first-rate undergraduate research to proceed at a reasonable pace. Research projects that will involve the new instrument include photodimerization of tropone, synthesis of propellances and other strained molecules, characterization of metalloenzyme models, investigation of shale- gas interactions, and orientation studies in polymers. The institution has contributed to the project an amount in excess of twice the NSF funds